THE MAGIC SCHOOL BUS: A CHILDREN'S TELEVISION SCIENCE SERIES

Award-winning Scholastic Productions, Inc. proposes to produce 39 fully animated, half hour television programs, based on the successful children's science book series, The Magic School Bus. We are seeking funding for the initial three seasons (13 episodes per season) which will be produced over a four year period. Designed as an informal science education series for PBS, it is targeted primarily for 6-9 year-olds, with special attention given to reaching girls and minority children. The series has clear science pedagogical goals: 1) to motivate children to further science study, 2) to present science facts, concepts and systems, and 3) to inspire positive attitudes towards science and education for students and teachers. Throughout the production, audience research and field testing will ensure that the programming is effectively meeting these goals. The series features a remarkable teacher, Ms. Frizzle, who takes her class on equally remarkable field trips. While other teachers may go to a museum, Ms. Frizzle leads her class onto a yellow school bus that shrinks (along with its students) to the size of a cell to journey through the human body, rocket into outer space, or travel into the eye of a hurricane. Thus, the series makes science tangible and relatable for an audience of children who are still concrete thinkers. We will create a broad outreach program, utilizing the publishing and distribution resources of Scholastic Productions' parent company, Scholastic Inc., (the largest publisher of children's materials in the English-speaking world), and other targeted organizations. Through viewer guides, series publicity and promotion, magazine editorials, community and after-school programs, we expect to reach a large and culturally diverse audience, including minorities frequently not served by PBS.